Complexity Theory for Variational Inequalities and Mathematical Programs

9312971 Magnanti This research will investigate complexity issues for the variational inequality problem. This is a new research direction that aims to: (1) provide new theoretical insights and a better understanding for a very general class problem, as well as for several of its specializations and applications, and (2) create new algorithms and algorithmic approaches for variational inequalities and related problems. Variational inequality problems (VIP) provide a natural and efficient framework for unifying the treatment of equilibrium problems encountered in areas as diverse as economics, game theory, transportation, and regional science. Moveover, variational inequalities encompass a wide range of generic problem areas including mathematical optimization (linear and non-linear), complementarity, fixed point, and equilibrium problems. The investigation aims to address several questions concerning the complexity of variational inequality problems: (a) What is the most general subclass of VIPs that are solvable in polynomial time? (b) What is the complexity of VIPs or of VIPs with special structure? (c) What is the relationship between the complexity of computing equilibria and fixed points and the complexity of algorithms for VIPs? (d) Can duality results for VIPs suggest new efficient algorithms? (e) What algorithms for VIPs are efficient in practice? Building upon many of the ideas used in recent research, this investigation will draw upon methods developed in the past decade in studying the complexity of linear and nonlinear programming (e.g. potential function methods, volume estimates, duality results) as well as other results from mathematical analysis such as convergence properties of nonexpansion maps.